NSF-NATO EAST EUROPE

9355471 Vieux The exchange will foster expanded collaborative activities through the visit of Dr. Kaleta to the University of Oklahoma and the visit of the PI to the Institute of Environmental Engineering. Both investigators will benefit from the exchange which will increase the scientific infrastructure through expertise developed during the two week visits. Dr. Kaleta's visit will be timed to coincide with the course taught on Air Quality Management. He will be providing several guest lectures on air quality in Poland. This interaction with students will provide an international theme to an important topic in the U.S. and the world. Dr. Kaleta will participate in research activities in the Environmental Modeling and GIS Laboratory which is under the PI's supervision. These activities will include air quality modeling and Geographic Information System analyses. The two week visit to Poland by Dr. Vieux will foster collaboration with Polish colleagues at the Institute of Environmental Engineering. During this period Dr. Vieux will help install air quality models and a Geographic Information System on existing workstations at the Institute. ***